Outreach and Evaluation Efforts to Extend the Impact of the NSDL Program

This special project is conducting several interrelated activities that contribute to the advancement of the education/outreach and evaluation efforts currently taking place in the NSDL program. The project outcomes are intended to highlight those activities currently taking place within the NSDL that represent best practices that can serve as examples and models for other NSDL projects and the NSDL program as a whole. Written evaluations of NSDL workshops, principal investigator meetings and NSDL panel meetings contribute to the success of NSDL.